Multiparameter Radar and Aircraft Studies of the Microphysical Kinematic and Electrical Structure of Convective Clouds During CaPE

This research is devoted to an observational study of the microphysical, kinematic and electrical structure of warm-based convective clouds in Central Florida as part of the convection and Precipitation/Electrification (CAPE) experiment. Investigations include multiple-Doppler synthesis of winds, polarization radar (CP-2) data, aircraft data, and a variety of in-situ and surface-based electrical measurements. Modeling studies include calculation of propagation/scattering using polarimetric measurements for a variety of hydrometeors. Adding a "radar" module to the CSU Regional Atmospheric Modeling System (RAMS) is proposed based on a new microphysical module currently being developed by Dr. Cotton's group. The latter will focus on identification of the "optimum" mix of polarimetric/dual- frequency radar signatures useful for cloud electrification, hydrometeor classification, and storm evolution studies.